Design and Analysis of Laminated Plates and Shells

This project is a feasibility study on applications of some new mathematical models for laminated plates and shells. The company aims to create software that implement these models in commercially viable packages. At present the analysis and design of laminated composites is based on highly simplified and therefore inaccurate models. The software produced under this project will be of interest to practicing engineers as well as to materials scientists.